Water is Life: Immersing the Public in Aquatic Diversity

The California Academy of Sciences will produce"Water is Life," a 30,383 square-foot permanent exhibit with educational programming. The exhibit is designed to engage the public with the living world of water, to foster environmental stewardship and increase science literacy. Three habitat components -- Philippine Coral Reef, California Coast and Global Rainforests -- are conceptually and experientially linked through "Water Planet," which explores water's physical properties and how they impact living organisms and lead to aquatic diversity. Each component also reinforces the importance of conserving aquatic resources. Educational programming takes "Water is Life" to local schools and community events and onto the World Wide Web, as well as provides venues for formative evaluation of exhibit design elements. The development of lending kits, plus supporting manuals and workshops, will extend the reach of "Water is Life" regionally and nationally. Similarly, instruction manuals and workshops for creating desktop, living reefs will have national impact. The compelling draw of live organisms, hands-on activities, and exhibit enrichment through educational programming provide accessibility to a large, diverse audience. The exhibit will reach over one million annual visitors, and a larger audience will experience distributed educational programs.